Problems in the analytic theory of L-functions

Number theory is fundamentally motivated by deep questions about the structure of the natural numbers. These questions have been studied throughout history, and more recently have found modern applications, e.g. cryptography, signal processing and data analysis, and communications. The main objects the PI will study are L-functions. L-functions play a central role in modern mathematics, and connect classical number theory with disparate areas such as representation theory, algebraic geometry, harmonic analysis, and theoretical physics. Classically, L-functions were studied because of the intimate connection of the zeros of L-functions to the distribution of prime numbers. Additional deep connections were later discovered. For example, good bounds on the values of L-functions are related to a variety of equidistribution problems; the vanishing or non-vanishing of certain L-functions at the critical point is related to arithmetic rank; and the vertical distribution of the zeros of L-functions matches the distribution of eigenvalues of random matrices, and hence certain distributions arising in physics.

In this project the PI will explore fundamental questions about families of L-functions. Further, the PI will mentor graduate and undergraduate students, organize conferences and seminars, and contribute to extra-curricular outreach activities. The funded research has two related areas of focus. The first is the study of sub-convexity bounds and the second is the related study of the distribution of values and zeros of L-functions. We plan to attack subconvex problems through a mix of moment calculations and novel use of certain delta symbols. The main project in the distribution of values is to prove asymptotics for the sixth and eighth moments of an orthogonal family of L-functions for the first time, thereby testing predictions from random matrix theory. Finally, there are a number of related problems with applications towards non-vanishing and critical line theorems, some of which will serve as student projects.